Collaborative Research: CCRI: New: SpecScape: Enabling a Global Spectrum Observatory through Mobile, Wide-band Spectrum Sensing Kits and a Software Ecosystem

With continued growth in the demands on wireless spectrum for wireless communication, spectrum policies are evolving at a pace far more rapid than ever before. Central to efforts of spectrum modernization is a critical need to accurately measure spectrum activities across diverse, wide bands and across wide areas in a cost-effective and accurate manner, so that impacts of such changes can be carefully evaluated and acted upon in a data-driven manner. The focus of this project, SpecScape, is to design, implement, deploy, and make available low-cost kits that allow spectrum sensing and measurement. In particular, the team is building an end-to-end infrastructure that includes mobile sensors to measure spectrum activity, a supporting software ecosystem, a cloud-hosted infrastructure to manage collected measurements, and mechanisms by which users can access such information.

The most significant broader impact of this project is that it provides a community-driven way to understand spectrum use across different spectrum bands -- across communications, astronomy, weather prediction, localization systems, etc. This information will aid researchers, industry practitioners, and governmental agencies, including policymakers. On the educational side, the team is involved in creating a hands-on wireless curriculum for undergraduates across multiple institutions (UW and UCSD), engaging undergraduates in research-related activities, and creating online courseware based on the spectrum sensing platform. The project also engages a broad audience through multiple dissemination channels of research outcomes and aims to encourage women and minority students to pursue STEM careers through opportunities in research activities.